Presidential Young Investigators Award

This grant supports basic experimental research on: (1) Coastal Erosion - Investigate Wave/Sediment process in swash zone based on large wave-tank experiments. (2) Environmental loading on ocean structures - investigate wave interaction with cylinders through experiments on fluid pressures near surface, interaction of drag and inertia forces, and effect of wave groups on structure motions.